Computer-Based Integral Calculus for High Schools

This project addresses the general problem of how the tools of symbolic computation can be used in the context of calculus instruction in high schools. For many years there have been programs, such as REDUCE, MASCYMA, SCRATCHPAD, and MuMATH which can perform symbolic computations that are required for the solutions of calculus exercises. But these powerful programs have been used mainly by researchers in many areas of pure and applied mathematics and in practical engineering applications. REDUCE algebra system will be adapted for instructional purposes by building a set of sample computer-based lessons in integral calculus. These lessons, combined with earlier work on the differential calculus, will cover all the standard material of the College Board's recommended curriculum for advanced placement calculus, AB. In addition to the use of REDUCE as an "algebra engine" the lessons make full use of high- resolution graphics, and the software is intended to be delivered to students on individual workstations. Most importantly, the software for problem-solving and calculus exercises will be able to keep track of the validity of the steps the student makes and detect and inform the student about incorrect steps. The overall environment is one in which algebraic and graphics tools are embedded in a framework of valid mathematical inference. In addition, this project is developing an interactive theorem proving system in which very able students can prove the main theorems of real analysis which are relevant to concepts in first-year calculus. During the academic year 1988-89 the lessons will be tested with a small number of high school students. The lessons will be available for wider use in January 1990.